REU Site: Program in Nanomaterials and Nanotechnology

Dartmouth College continues a Research Experience for Undergraduates (REU) site The REU Site has been operational since 1999. The theme of the initially funded REU Site was Molecular Materials; it has gradually evolved into the broader area of Nanomaterials and Nanotechnology. Ten undergraduate students will be recruited nationwide every year for a nine-to-ten-week summer research experience. Student research projects fall into three broad categories: synthesis, computation, and characterization; projects will be done under the mentorship of faculty in the departments of Chemistry, Physics and Engineering. In addition to participating in individual research projects, REU students will attend a mini-course in Ethics, and participate in scientific field trips and recreational activities.

The REU Site is supported by the Department of Defense in partnership with the NSF REU program.